Collaborative Research: How a Biogeographic Barrier Affects Range Shifts in Marine Fish Populations

This research will advance fundamental understanding of how species traits and oceanographic processes interact to change the distribution of marine fish populations. The investigators will combine statistical modeling of species distributions, physiological experiments, and a field campaign in a study system that includes a strong biogeographic barrier, or ocean convergence zone, in the Mid-Atlantic Bight on the US continental shelf. Results will inform local and regional marine fisheries management. The project also includes a substantial education and training component, focusing on coursework and paid internship experiences for undergraduate students, including for those attending universities without marine science or oceanography curricula.

This project is advancing fundamental ecological understanding of how species traits and oceanographic processes interact to shape range shifts in marine ecosystems, particularly across strong biogeographic barriers. Poleward shifts have been widely documented globally, and current theory assumes that tropical and subtropical species will naturally replace temperate species as oceans warm. This study challenges that assumption by focusing on the mechanisms of range shifts in regions where steep environmental gradients constrain dispersal. By examining historical data with novel spatiotemporal techniques, conducting the first ichthyoplankton surveys in the study region in over twenty years, and combining observations with novel trait-based approaches, this research is addressing the question of why some species successfully cross biogeographic barriers whereas others do not, even when physical transport is possible. The approach integrates trait-based ecology, population dynamics, field observations and laboratory studies to build a predictive framework for species colonization and tests hypotheses regarding shelf- mediated dispersal pathways, the role of warm-season connectivity, and the importance of thermal niche breadth in overcoming physiological and dispersal barriers. The framework is applicable to other regions worldwide, improving predictive models of marine biodiversity shifts and informing fisheries and resource management.